Advanced Undergraduate Laboratory in Solid State Physics

An upper-division laboratory course is being established for undergraduate students at the senior level who are pursuing physics and related disciplines. Within this laboratory course, there are 13 experiments. These are as follows: 1) x- ray analysis; 2) electrical resistivity vs. temperature; 3) Hall Effect vs. temperature, drift velocity; 4) thermal conductivity vs. temperature; 5) thermoelectric power vs. temperature; 6) magnetic susceptibility vs. temperature; 7) magnetization vs. temperature; 8) superconductivity - metallic and oxide; 9) infrared absorption; 10) internal photoemission; 11) minority carrier lifetime; 12) Mossbauer spectroscopy; and 13) electron tunneling.Most of the equipment items are being purchased, but they are making for themselves such items as low-temperature dewar stations with associated cryogenic probes and vacuum plumbing.A one-semester introductory lecture course in solid state physics is also being developed the at same time. The lecture and laboratory courses are being offered together.